Conference: The 2024 Graduate Student Topology and Geometry Conference

This award supports the 21st annual Graduate Student Topology and Geometry Conference, to
be held at Michigan State University from April 12-14, 2024. This conference is specifically
aimed at graduate students, with many of the talks delivered by student participants. The
conference will bring together students in different stages of their graduate studies, and will
provide a venue for students from a diverse collection of institutions and geographic regions to
come together and interact. It aims to create a highly collaborative and inclusive environment
that will stimulate research and foster lasting connections between researchers at particularly
crucial moments early in their careers. The conference will also provide a venue for students to
hear about cutting edge research from established senior leaders and early-career faculty.

A principal goal for this conference is to give graduate students the opportunity to present their
research. The majority of the talks at the conference will be given by students, and there will
also be a poster session where students can present their work. Graduate students will learn
about the current frontiers of research in geometry and topology, within an inclusive and
welcoming community of scholars. Talks will range across many active subfields of topology
and geometry. There will be plenary talks by Julie Bergner (University of Virginia), Ciprian
Manolescu (Stanford University), and Gabor Szekelyhidi (Northwestern University), as well as
talks by early-career faculty members Carolyn Abbott (Brandeis University), Anthony Conway
(University of Texas at Austin), Colleen Delaney (University of California, Berkeley), Antoine
Song (California Institute of Technology), Iris Yoon (Wesleyan University), and Allen Yuan
(Institute for Advanced Study/Northwestern University). These faculty talks will also provide the
opportunity for early-career researchers to engage with experts outside of their home institution,
expanding their network of mathematical scientists. The conference URL is
https://sites.google.com/view/gstgc2024msu/home